Development of a Modernized Bartol Research Institute Computing Facility

This grant will support the renovation and update of the University of Delaware Bartol Research Institute Computing Facility. This facility is used to support research in the broad fields of space physics fluid dynamics, and high energy air showers. The computational speed and capability of the facility will be upgraded, and graphics visualization applications will be developed. This activity is supported jointly by the MPS Office of Multidisciplinary Activities (`OMA`) and the MPS Division of Physics.